U.S.-China Joint Seminar on the Yi Peoples and their Neighbors in Southwest China Society, Seattle, Washington, March 1995

9416824 Harrell This is a proposal for partial support for a joint seminar with scholars from the People's Republic of China. The seminar organizers are Steven Harrell, University of Washington, and Wu Jingzhong, Sichuan Provincial Research Institute for Minority Affairs. The topic is the relationship between the Yi peoples of Southwest China, a group numbering over six million, but little known in the West, and their Han, Tibetan, and other neighbors. Five Chinese, one American, and one Australian scholar have been invited to prepare papers, which will be distributed in advance and discussed at the seminar, which will be held on the University of Washington campus from March 19-22, 1995. In addition to making scholarship on the Yi accessible to the Western anthropological community, this seminar will also serve to intensify the dialogue between Western anthropology and Chinese ethnology, disciplines with a similar substantive focus but widely differing methodological assumptions. After the seminar, revised versions of the papers are expected to be published in English in the U.S. and in Chinese in China.